Dissertation Research: Local Cooperation With Environmental Conservation Programs

This dissertation research project will fund a graduate student from the University of California-Riverside to study the conditions under which local communities cooperate with conservation programs, and how local concerns are accounted for in such programs. Building upon good contacts with Mexican scientists, the student will study two sites of UNESCO's Man in the ÕBiosphere Program in Durango, Mexico. Fieldwork will compare two biosphere reserves to study the conditions affecting local support of the biosphere program. This project is important because it will help us understand the causes of local community cooperation with, or antagonism to National programs which limit local autonomy in use of natural resources. In a world where pollution is an increasing danger, any knowledge to help build community support for conservation is valuable.